Postdoctoral Research Fellowships in Chemistry

Dr. Martin Kirk has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Kirk's doctoral degree was from The University of North Carolina under the supervision of Professor William Hatfield. Dr. Kirk intends to continue research at Stanford University under the sponsorship of Professor Edward Solomon. Dr. Kirk's area of research will be physical-inorganic studies which relate the activity of transition metal ions in protein active-sites to their geometry and structure. Long range, he will study biomimetic manganese complexes related to the oxygen-evolving centers in Photosystem-II. His postdoctoral studies on the behavior of iron-sulfur clusters related to ferridoxins will facilitate his future research. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.